Assessing the roles of wear and roughness on dynamic fault friction

Faults that host earthquakes are naturally rough which prevents movement on a fault. Earthquakes begin when stress overcomes the strength of rough patches. This project will advance our understanding of the physics of earthquakes by exploring two mechanisms that may regulate the friction of faults during earthquakes. This project serves the national interest by promoting progress in the science of earthquake hazards with experiments under earthquake-like conditions using a one-of-a-kind deformation apparatus. The project will further benefit society by playing a vital role in mitigating earthquake hazard and risk worldwide by improving the understanding of earthquake processes.

Experimental validation of physics-based constitutive equations that describe the frictional behavior of geologic materials during seismic slip is a critical step in advancing physics-based dynamic rupture models for earthquakes. The results from this work will advance our understanding of earthquake physics and will inform the development and modification of new and existing earthquake rupture models. This project will achieve these goals through comparison of the competing effects that strengthen and weaken fault patches. These experiments will be the first with independently controlled and elevated pore pressure, confining pressure, and normal stress at fixed slip rate.